Fourth Order Equations in Conformal Geometry

ABSTRACT

The main theme of the project is to develop the theory of fourth order
equations arising from conformal geometric considerations. The first
part of the project seeks to apply the fourth order equation as
regularizing equations of the more natural but more difficult fully
nonlinear partial differential equations in conformal geometry.
The first consequence will be natural conformal criteria for the
existence of a conformal metric of positive Ricci curvature. The second
part of the project seeks to widen the set of conformal classes to which
our theory of fourth order equations may be applied. A concrete problem
would be to find saddle point solutions of the fourth order equations
on a large class of four dimensional conformal structures of negative
scalar curvature. The third part of the proposed project is to develop
the theory of biharmonic maps in four dimension. It is proposed to
develop a classification of biharmonic maps of special conformal
structures.

The several parts of this proposal share a common novel feature to
consider a fourth order nonlinear differential equation that relates
fourth order term of a scalar quantity to the scalar quantity itself.
The equation came from geometric considerations for a four dimensional
space that are natural from topological perspective. The project
will have an impact on the development of higher order differential
equations in several ways. First it will introduce new techniques
to study the solutions of such equations. Secondly, it will yield new
methods to solve the more traditional second order equations of geometric
interest. Thirdly, the results have aleady yield application to the
geometry of four dimensional space.